T.E.A.M.: Technician Education in Additive Manufacturing

Two ATE Centers (the National Center for Materials Technology Education and the National Center for Rapid Technologies) are collaborating and participating at the ground level of Global Additive Manufacturing (AM) Standards development by providing technical and educational input in the areas of terminology, test methods, processes, materials and design that facilitate the creation of AM core competencies. The project advances knowledge about and understanding of additive manufacturing by providing standardized vocabulary, materials, specifications, and quality benchmarks that can be replicated and accepted by industry and their customers. The project improves technician education by providing student technicians with more comprehensive and up-to-date skills and experiences with AM industry processes and methods.